Creating A Computerized Mathematics Classroom for Empirical Learning

Students are observing that graphs and calculations can suggest theory, which gives rise to more calculations and plotting, then more theory.... Pre-calculus and calculus students are using a computer laboratory to capture this interaction between logical proof and empirical observation by using software tools for exploring mathematical modelling and for writing quality mathematical exposition. The laboratory contains 17 Macintosh Classic computers and Calculus T/L software.